CAREER: Multiwavelength Optical Transport Networks

9502734 Ali The goal of the research aspect of this work is to propose a multilayered network architecture that is robust to future evolution in network topologies or transmission formats and bit rates. This is achieved by introducing an all-optical transparent layer in the transport network hierarchy. Such a network must be able to support all types of existing and future network services. The network must also be scalable to handle large geographical areas, while having the flexibility to adapt to shifting traffic patterns. The proposed multilayered network architecture satisfies these objectives by combining optical wavelength division-multiplexing (WDM) with synchronous optical networking (SONET) and asynchronous-transfer mode (ATM) networking. The educational aspect of this proposal focuses n developing and coordinating an undergraduate/graduate optical communications/lightwave networks curriculum in our department. The ultimate goal is to prepare, in an accessible style using undergraduate level reasoning, a new generation of undergraduate students who can fully understand and appreciate the "all optical" revolution in networking that fiber optic technology is producing. ***